NSF Young Investigator

9357756 Subrahmanian Reasoning agents functioning in a dynamically changing world often need to reason simultaneously in many different ways. These ways may include: reasoning about time, reasoning in the presence of uncertainty, reasoning in the presence of non-monotonicity, and reasoning about diverse data structures. In this proposal, we plan to develop a uniform scheme for reasoning with hybrid representations of data and knowledge. We will develop prototype implementations of this scheme as well as study application of this scheme to diverse domains.